Development of an Interactive Systems and Controls E-Book

The objective of the project is to develop a PC and Web based interactive "Systems and Controls" E-Book to address multidisciplinary curricular needs in Electrical, Mechanical, and Aerospace Engineering, and Mathematics. This E-book supports undergraduate controls curriculum classes such as differential equations, microprocessors, linear algebra, and senior design. It enables multidisciplinary curricular integration via case studies, and bridges theory and practice by using realistic design problems and capstone projects. It also enhances student learning through interactive modeling/simulation in MATLAB with 3D animation, interactive problems containing real-time solutions, case studies, and interactive multimedia topical lectures. It provides an enriched interactive learning experience which facilitates conveying fundamental/advanced concepts, asynchronous learning, and different teaching and learning styles. Multiple test sites, university and industrial partners, publishers, and an assessment specialist contribute to the development of this E-book.